Environmental Workshop on Ozone Depletion and the Greenhouse Effect

Two workshops will be held for 20 faculty each in the areas of Ozone Depletion and the Greenhouse Effect. The audiences will be 20 faculty from undergraduate institutions and 20 from community colleges in the Philadelphia vicinity. These current topics can be incorporated into curricula in several science departments. The workshops will provide the participants with hands-on experience with detection equipment used in the field. The participants will also receive in-depth lectures on the science relevant to the two topics and will discuss society's responses to these environmental challenges through legislation and court decisions and the portrayal of these issues in the mass media. One day follow-up workshops will be conducted for each of the two groups, and evaluations will be done at each workshop.